Capability-Focused Real-World-Based Technology-Enabled (CARTEL) Instructional Strategy: Development and Testing in Introductory Courses

Engineering - Mechanical (56)

This project focuses on significantly enhancing the Introduction to Information Technology course through the infusion of case studies developed by the Laboratory for Innovative Technology and Engineering Education at Auburn University. The targeted goals of the project include: 1) implementation of a capability-focused real-world based information technology-enabled instructional strategy; 2) development of critical thinking capabilities among students; and 3) increased student usage of information technologies in mastering concepts covered in course instruction. In addition, this project includes the development of course mapping techniques to assist in course planning, development, and delivery of instructional strategies. Evaluation and assessment strategies are being implemented to refine the course mapping and instructional strategy plans. Mechanical Engineering faculty and students are benefiting from this new curriculum enhancement.